REU Site: Multidisciplinary Research for Undergraduates in Nanomaterials for Energy and Biological Applications

This Research Experiences for Undergraduates (REU) Site Program, Multidisciplinary Research for Undergraduates in Nanomaterials for Energy and Biological Applications, at Indiana University-Purdue University Indianapolis (IUPUI), focused on nanomaterials for energy and biological applications will provide a diverse cohort of undergraduate students with a unique and immersive research experience infused with training and professional development programming. Nanotechnology represents an exciting and multidisciplinary topic at the forefront of discovery-based science, and is well-suited to accommodate undergraduate researchers from a broad range of STEM disciplines. At IUPUI, the Integrated Nanosystems Development Institute (INDI) provides a collaborative environment where undergraduates will be challenged with nanomaterials research projects ranging from advanced biology to energy storage and generation. Faculty mentors within INDI span the Schools of Engineering & Technology, Science, Medicine, and Dentistry. This collaborative atmosphere not only encourages broad thinking and deep learning, but also showcases the breadth of nanotechnology while enhancing communication skills, problem solving, and students' ability to work within a diverse community of researchers. With the goal of offering a research-based summer program designed to instill students with the confidence and resources to pursue and excel in future advanced degree programs and professional careers, this site focuses on engagement that combines cutting-edge science with workshops that range from public speaking and career options to graduate school admissions and GRE preparation. In addition, IUPUI's existing NSF-funded Research Experiences for Teachers (RET) and Innovative Technology Experiences for Students and Teachers (ITEST) programs allow unique opportunities for REU students to interact with K-12 teachers and students from surrounding metropolitan, high-needs school districts which will enhance RET-developed products (learning modules) and positively impact/inspire high school students to consider undergraduate programs in STEM.

Over three years, this REU Site will: 1) Annually recruit 10 undergraduate students, a majority from underrepresented groups, from universities and community colleges with limited research opportunities and graduate programming, to participate in a summer program that will jumpstart their interest in academic research and higher learning; 2) Utilize the multidisciplinary nature of nanomaterials to impact students from across STEM fields and develop the skills needed to succeed in academic research; 3) work to establish strong professional attributes within participants, including strong communication skills as well as ethical behavior and societal responsibilities pertaining to STEM research; and 4) provide exciting and relevant research topics while cultivating a desire for career trajectories requiring advanced degrees. The organizational structure of the proposed REU-site will aid in meeting these goals and ensuring program success. Student recruitment and diversity will be achieved through established partnerships with local and national undergraduate-serving universities/community colleges with limited research offerings. In addition, IUPUI provides a campus-wide infrastructure for undergraduate summer, academic-year research opportunities, and a solid foundation for graduate school planning, career development, and fostering lifelong active learning.